NYI: Signal Analysis and Processing in Matched Coordinate Systems

This research aims to extend current methods of time-frequency and time-scale analysis by developing a general theory for signal analysis and processing in alternative coordinate systems. Specific tools under investigation include optimal, signal- dependent time-scale representations, information measures for time-frequency and time-scale analysis, and operator-based, generalized coordinate systems. Test signals are being drawn from problems in machine health monitoring, magnetic resonance imaging, and dispersive signal processing.